EMSW21-RTG: Training the Research Workforce in Geometry, Topology and Dynamics

Abstract

Award: DMS-0602191
Principal Investigator: Ralf Spatzier, Mario Bonk,
Richard D. Canary, John E. Fornaess, Juha M. Heinonen

This proposal calls for a research training program in geometry,
topology and dynamics at the University of Michigan. Recent
Ph.D.'s and advanced graduate students will be the main
beneficiaries. The Mathematics Department at UM has one of the
largest and most vigorous post-doctoral and graduate programs in
the country with an excellent record of producing high-quality
researchers in geometry, topology and dynamics. This proposal
calls to bolster the training of post-docs and graduate students
in all of these areas by deepening and broadening it and
providing them with ample opportunities to excel in their
research. Five faculty members (Mario Bonk, Richard Canary, John
Erik Fornaess, Juha Heinonen and Ralf Spatzier) will lead this
project in collaboration with eleven other senior faculty. The
proposal calls for several specific innovations in the training
program by: providing intensive exploratory seminars and
workshops, travel semesters to deepen the scientific training at
other insitutions at the forefront of research, opportunities to
develop lecturing skills, intensive mentoring and exposure to
research in the three areas to undergraduates.

Geometry, topology and dynamical systems are core areas of
mathematics. Geometry investigates the shape of spaces, through
invariants such as curvature. Topology explores the properties
of spaces which remain invariant under deformations such as the
number of holes in a surface. Dynamical systems concern the
evolution of a physical or mathematical system over time.
Especially in recent years, they have developed in mutually
beneficial interaction. Case in point are topology, geometry and
complex dynamics in low dimension which in many aspects mirror
each other. Many of the most exciting developments in these
areas are truly interrelated, and benefit from each other either
by idea, analogy or actual tool. At the same time, connections
with other fields such as algebraic geometry and mathematical
physics have strengthened dramatically. These developments have
been amazing in their breadth and depth, and demonstrate the
vitality of these areas. This project will train young
researchers in these exciting and interconnected fields, and will
help insure their future health and continued interaction.